GOALI: High Pressure/High Temperature Gas-Liquid-Solid Fluidization

ABSTRACT

Proposal Number: CTS-0207068
Principal Investigator: L.-S. Fan
Affiliation: Ohio State U
Title: High Pressure/High Temperature Gas-Liquid-Solid Fluidization

This GOALI proposal is a continuation of the PI s work on electrical capacitance tomography (ECT) to characterize complex three phase flow in fluidization processes. The novel aspect of this proposal is the image reconstruction technique based on the unsupervised analog neural network multi-criteria optimization technique.